Individual: Presidential Award for Mentoring

Billy Joe Evans
University of Michigan
HRD-9814705
In over 25 years at the University of Michigan, Dr. Evans has secured significant support for undergraduate and graduate programs to enhance minority participation in science. At the precollege level, Dr. Evans has placed more than 200 inner-city minority high school students in authentic research settings. Approximately 50 of these students are still enrolled in undergraduate programs and at least a dozen have earned Ph.D. or M.D. degrees from several of the nation's leading universities.